LTER: MCR IIB: Long-Term Dynamics of a Coral Reef Ecosystem

Intellectual Merit: The Moorea Coral Reef (MCR) LTER was established in 2004 to investigate community and ecosystem effects of pulsed perturbations and slowly changing environment from local and global stressors. The site is the coral reef complex surrounding the island of Moorea, French Polynesia, which includes a lagoon system (with fringing reef and back reef habitats) and a steeply sloping fore reef offshore. The core issue that unifies MCR research centers on ecological resilience, specifically the processes and attributes that affect the capacity of a coral reef to absorb perturbations and reassemble to a community dominated by stony corals without degrading to an alternative state (e.g., one dominated by macroalgae). At the end of MCR I, virtually all of the coral on the outer fore reef surrounding Moorea was killed by a natural but brief outbreak of a coral predator, which was followed by storm waves that removed dead coral skeletons from the fore reef on one of the three shores of the island. These perturbations had little effect on corals in lagoon habitats. Spatial variation in the landscape scale effects of these qualitatively different perturbations provides the MCR with an unparalleled scientific opportunity to address fundamental, unresolved questions regarding disturbance and recovery of coral reefs, together with the effects of community structure on reef functioning. The MCR research program addresses two time horizons and hence research activities are organized into two corresponding themes. Research Theme 1 (Resilience of Contemporary Reefs) focuses on factors that promote or inhibit the return of a perturbed reef community to a coral-dominated state under current levels of stressors from Global Climate Change (GCC) and Ocean Acidification (OA). Research Theme 2 (Structure and Function of Reefs in the Future) addresses the longer time horizon and seeks insight into how forecasted changes in GCC- and OA-related drivers may alter the structure of the benthic community, together with the consequences of those changes to ecosystem processes. This integrated research program for these inter-related themes includes question-driven time series measurements, long term field experiments, shorter-term field and laboratory experiments and measurements, and modeling and synthesis activities to integrate and generalize the results. The six goals of MCR IIB are to: (a) contribute to understanding what factors influence reef resilience and how GCC- and OA-related drivers will affect coral reefs; (b) continue our long term datasets on community dynamics, ecosystem processes and physical and chemical drivers; (c) maintain 3 long term field experiments and initiate 1 new one; (d) develop and test ecological theory; (e) continue to enhance our information management system to more fully meet the needs of the LTER network and the broader scientific community; and (f) maintain the effectiveness of MCR outreach components. Broader Impacts: Coral reefs are not just ecologically important - they yield upwards of $375 billion annually in goods and services (most of it in the developing world) that are vulnerable to human activities and climate forcing. Hence this research has relevance and application to resource managers, policy makers and stakeholders worldwide. LTER findings are presented annually to the Minister of the Environment of French Polynesia and have been used in the development of Marine Protected Areas for Moorea. Broader impacts arising from LTER educational activities include postdoctoral mentoring, research that integrates undergraduate and graduate training, active participation of faculty researchers and K-12 teachers in MCR research, incorporation of MCR findings in teaching curricula, progress towards an ethnically diverse MCR student community, and involvement of faculty and students from predominantly undergraduate and minority-serving institutions. Additional impacts are realized by MCR outreach efforts, including partnerships with three local schools that serve socioeconomically disadvantaged and minority students, with the University of California - Santa Barbara REEF (Research Experience & Education Facility) that exposes over 10,000 K-12 and public visitors annually to MCR research, and with the Atitia Center on Moorea to reach Tahitian school children and the public.